PRF/M: Parasites and Herbivores as Agents of Natural Selection in Plants

Disease-producing and parasitic species are important agents of natural selection in the evolution of their hosts. Disease-producing species are often bacteria or fungi; parasites are often insects or other invertebrates. Each of these classes of organisms has a different physiology, and therefore can present a different challenge to a host. Ford and Haldane postulated that this diversity of challenges produces a diversity of selective pressures which help explain the high genetic diversity observed in human populations. The PI plans to test the generality of this hypothesis by using a woody perennial plant, the wild thyme (Thymus vulgaris L.) and three species that parasitize it or feed upon it. These include the mollusk Agriolimax reticulatus Muller, the lepidopteran Pyrausta sanguinalis L., and the mildew fungus Oidium sp. Thyme plants can be characterized by their terpene composition, and single plants contain a single terpene. The biochemical pathways of terpene production are known, and the genetic control of terpene production involves single Mendelian loci. Thyme populations are highly polymorphic for these terpene chemotypes. The PI proposes to (1) study the differential sensitivity of these terpene variants to parasites and (2) document the diversity of selective pressures generated.